Project Mammoth Park: A Professional Development Model Using Community-Based Projects to Transform Inquiry into Science Classrooms

9819633
CRAWFORD

This project will use a community-based archeological excavation as a venue for a national professional development model for enhancing high school teachers' understanding of the nature of scientific inquiry. Teachers will collaborate with scientists in an excavation of a peat bog on the grounds of a school in Oregon during a 10-day summer institute. The teachers will participate in five two-day workshops in the following academic year. The project will run 51 months; each year 24-48 teachers will participate, for a total of 120 teachers over the four years. Students will examine 10 X 25 X 25 cm blocks of peat from the excavation in their classrooms. Classrooms will post student-collected data on a web site for access by other school classrooms. The subject matter is interdisciplinary, and includes some of the social sciences as well. This project will provide students with evidence of evolution, and allow them to draw their own conclusions. A professional development toolkit will be developed during the project, which will empower teachers in other parts of the nation to use any local community-based scientific project as a theme for incorporating inquiry-based approaches into the science classroom.